Institute for Computational and Experimental Research in Mathematics

The Institute for Computational and Experimental Research in
Mathematics (ICERM) is a new Institute. Its mission is to support
and encourage research in the mathematical sciences with a
thematic focus on the fruitful interplay between mathematics and
computers, explored and developed through computation and
experimentation. ICERM will accomplish these goals through a
variety of programs and activities. The Institute will run one
large research program per semester, with each program focusing
on a particular subtopic that aligns with the general
theme. Program participants will range from graduate students to
senior researchers. During the summers, the Institute will host
additional programs for postdoctoral scholars and early career
researchers, as well as for undergraduates selected from a
national pool.

ICERM will be a novel institute in an area of growing
importance. An Institute in computational and experimental
mathematics has the potential to cut across disciplines within
and beyond mathematics and statistics. The Institute programs
will strongly emphasize training and retaining graduate students
and postdoctoral scholars in the mathematical sciences community.
ICERM's leadership has substantial experience in supporting and
working with underrepresented groups in the mathematical
sciences, and Institute programming will provide new
opportunities for underrepresented students and scholars. ICERM
has already initiated partnerships with leading research intense
companies and national research laboratories, and effective plans
to nurture these partnerships will help to sustain a rich and
deep interaction with the broader research community.